Celebration of 150 Years of Progress in Mathematics

150 Years of Progress in the Mathematical Sciences
An Event to Honor the Sesquicentennial of
Washington University in St. Louis

We will organize a conference, on the occasion of the Sesquicentennial of Washington University in St. Louis, to celebrate 150 years of progress in the mathematical sciences. The program will showcase seven distinguished scholars from a broad range of mathematical subject areas:

Robert Bryant Duke University geometry
R. R. Coifman Yale University wavelets, applied mathematics
John P. D'Angelo University of Illinois geometric analysis
Joseph J. Kohn Princeton University partial differential equations
Blaine Lawson SUNY at Stony Brook geometry
Yves Meyer Universite de Paris harmonic analysis
Richard Schoen Stanford University geometry
Elias M. Stein Princeton University harmonic analysis

Our conference will feature both lectures for the public and specialized seminars for mathematicians.

We see our activity as having two vectors: (1) to inform the public about progress in the mathematical sciences and (2) to stimulate mathematical activity in the mathematics departments at Washington University and nearby universities. Our conference will not concentrate on achievements of the past 150 years. It will look forward to prospects for the future.

A number of Washington University graduate and undergraduate alumni as well as former postdocs have agreed to attend the event. We will make special efforts to include mathematicians from the greater St.Louis area and across the country in our conference. We are using direct mail, e-mail, and personal contacts to make the mathematical community aware of our event. A significant portion of our funding will be dedicated to subventing the travel expenses of women, young people, graduate students, and under-represented groups.